Shipboard Scientific Support Equipment

9819918
Carignan
This award to Skidaway Institute of Oceanography in Georgia will provide equipment in support of oceanographic research on R/V Savannah, a new research vessel under construction to be operated by the institute as part of the University-National Oceanographic Laboratory System research fleet. Specific equipment to be acquired includes a trawl winch, a conducting cable winch, an engine monitoring/alarm system, a marine sanitation system, and equipment to outfit the laboratories on the vessel. The shared-use equipment supported here will assist marine scientists conduct studies from R/V Savannah, particularly in the Atlantic Ocean along the southeast coast of the United States, during 2000 and future years.
***